Young Infants' Perception of Partly Occluded Objects

The function of vision is to provide information to the observer in order
to facilitate subsequent action on the environment. Accurate perception
entails discernment of the boundaries, coherence, and unity of objects.
This process is challenged by the fact that many objects are partly
occluded by other, nearer objects. Successful object completion under
conditions of partial occlusion resides in the appropriate attention to and
utilization of several sources of visual information, such as the
luminance, color, texture, motion, and depth of visible surfaces. A
complete account of object perception must include studies of its
development, and recent research has contributed important information to
our knowledge in this area. Interestingly, at birth infants seem to
respond to a partly occluded object as if it consists of two disjoint
surfaces, even if it provides a clear percept of unity to adults. By 2
months of age, in contrast, infants have been found to perceive object
unity under some circumstances, and this skill improves over the following
months. Thus humans are not born with the ability to perceive object
unity, but it develops very rapidly over the first few months. At present
there are disagreements among researchers with respect to the mechanisms of
development of perception of object unity. For example, young infants have
been claimed to rely exclusively on motion, and not other cues such as
surface appearance, to disambiguate visual scenes involving partial
occlusion. Other approaches invoke "core principles" that guide object
perception from birth, such that the perceptual experience of bounded,
segregated objects is shared by all human observers, even very young
infants. Recent research, however, provides evidence against both these
views: Young infants, like adults, appear to rely on several sources of
visual information in object perception tasks, including motion as well as
surface orientation, color, texture, and depth. On this account, the
development of veridical responses to objects proceeds via improvements in
the utilization of all these cues. Despite this advance in theoretical
approaches to the development of object perception, important questions
remain. The present research will investigate issues surrounding how infants
respond to the depth and segregation of objects in their environment. The
goal is to further elucidate the constraints that guide this fundamental perceptual
skill in the first few months after birth. This will be accomplished by testing
the role of specific visual cues in young infants' perception of object unity, as
well as explorations of young infants' visual scanning of object displays, to chart
developmental changes in attention to visual cues.